Interfacial Phenomena and Pattern Formation

Interfacial phenomena occur whenever a continuum is
present that can exist in at least two different phases
(e.g. ice and water) and there is some mechanism that
generates or enforces a spatial separation between these
two phases (the freezing of the water). The separation
boundaries are called interfaces or free boundaries.
The objective of the project is to study the time evolution
of the boundaries from the following points of view:
(i) generation---how interfaces emerge from an initially
almost uniform non-stable equilibrium, (ii) propagation---how
interfaces move, (iii) nucleation--how phases switch from
one to the other, and (iv) pattern formation--how mathematical
models can be used to accommodate and predict commonly
observed phase patterns such as rotating spirals, oscillating
spots, expanding rings, etc. The project will for the most
part be carried out on systems of reaction--diffusion
equations such as activator-inhibitor models in biology.
The main tools used are the theories of partial differential
equations and geometric measure. Experimentation through
computer simulation will be an integral part of this
project in order to stimulate, predict, and validate
theoretical studies.

Interfacial phenomena are commonplace in physics, chemistry,
material science, biology, and even in mathematical finance.
In all these areas it is important to predict, and eventually
to control, the interfacial dynamics. The research performed with
this award will study mathematical model that govern these
seemingly complicated yet universal natural phenomena.
The work will also lead to the development of new and refined
mathematical theories and tools that can handle phenomena of
instability and ambiguity. Such phenomena are often observed in
these applications.